The Emergence of Markets for Controlling Risks

The overall objectives of this project are (1) to develop better understanding of market-based approaches for controlling environmental risks, and (2) to develop a theoretical model aimed at explaining the evolution and performance of market-based risk management approaches. As part of the study, two specific market-based risk management approaches will be examined: the use of emissions trading permits and the trading of lead rights. For each case, data will be collected and analyzed on (1) the rules governing the market; (2) the performance of the market; (3) the effects of the market on the allocation of risk; (4) the behavioral responses to the market of key participants in the decision making process; (5) the factors affecting the emergence of the market, and (6) the factors affecting the evolution of the market. Despite the importance of market-based approaches for controlling environmental risks, little research has been directed toward predicting the emergence and performance of such markets. This innovative project will develop a theoretical model that will help predict the actual performance of different market-based approaches. It is expected that the results of the study will (1) contribute to the development of an overall theory of market performance, and (2) provide risk analysts and decision makers with a comprehensive and rigorous approach for addressing different risk management problems.